The Global Manufacturer: Technological and Economic Opportunities, and Research Issues - Albany, NY October 5-8, 1987

This proposal is for funding to cover partial cost of conducting the conference "Global Manufacturing: Technological and Economic Opportunities, and Research Issues" to be held at PRI in October 1987. The purpose of this conference is to foster an awareness of the technical, managerial and policy issues, both national and international, that are involved in global manufacturing and to delineate a research agenda that will contribute to our understanding of the complexities inherent in global manufacturing. To achieve this goal, scholars actively engaged in research on the selected topics will be invited to be speakers. The topics to be addressed will focus on the technical, economic and public policy issues relating to the future of automated manufacturing, advances in communications and computer technologies, management of human resources, and national and international competition and cooperation. The speakers will be from key industrial nations. Discussion of each topic will be led by a panel composed of 3 to 5 individuals including a U.S. industrialist, a foreign manufacturer, an academic, and a discussant/rapporteur who will prepare a written synopsis of the panel proceedings, focusing on needs for research. The proceedings of this conference will be published.